Interagency agreement between GSA, Office of Technology Strategy and NSF for Interagency Council Funding

This is an interagency agreement between GSA, Office of Governmentwide Office of Technology Strategy and NSF for Interagency Council Funding. This agreement commences on the date of execution by both parties and shall remain in effect through September 30, 2009.